Institute for Computer-Aided Reasoning in Mathematics

The Institute for Computer-Aided Reasoning in Mathematics (ICARM) is a national institute dedicated to catalyzing fundamental advances in mathematics by harnessing the ongoing revolution in AI and computer-assisted reasoning. Its mission is to empower mathematicians by providing them with the tools and expertise to effectively integrate artificial intelligence, machine learning, formal methods, and automated reasoning into their research. Mathematics is integral to scientific and technological achievement, underpinning advances across critical areas such as quantum computing, cybersecurity, data science, computational modeling, and engineering. The institute serves as a crucial resource for leveraging recent breakthroughs in artificial intelligence to accelerate progress in mathematics. ICARM emphasizes interdisciplinary collaboration among mathematicians, computer scientists, and students. The institute helps to train the next generation of researchers in computational methodologies, preparing them for a broad range of scientific careers, and actively expanding the research community in mathematics.

ICARM provides specialized technical expertise to support mathematicians in adopting and utilizing advanced tools for computer-aided reasoning to power mathematical research. The institute provides direct support for automated reasoning, formal verification, machine learning, and AI, significantly enhancing mathematical research capabilities. ICARM organizes targeted events, including workshops, collaborative research visits, and intensive summer training programs, to disseminate these skills and promote the integration of these advanced techniques into mathematical practice. These collective efforts foster new mathematical insights, stimulate interdisciplinary collaboration, and ensure robust, hands-on support for advancing research in mathematics through cutting-edge machine-driven reasoning. This award by the Division of Mathematical Sciences is also supported by the Office of Advanced Cyberinfrastructure and the Division of Computing and Communication Foundations in the NSF Directorate for Computer and Information Science and Engineering and the Office of Strategic Initiatives in the NSF Directorate for Mathematical and Physical Sciences.